Acquisition of a GCMS for the study of Hydrocarbons in the South Texas Environment

0216531
John
Texas A&M University-Kingsville (TAMUK) seeks NSF support for the acquisition of a gas chromotograph/mass spectrometer (GC/MS). The proposed GC/MS will include peripherals to enhance and supplement the research abilities of the department. Research interests in the following areas would benefit immediately:

Hydrocarbon characterization in the ambient urban atmosphere and the evaluation of voc/n0x ratios in Corpus Christi.

Characterization of sorption and interphase mass-transfer of complex mixtures and their constituents for use in risk and remedial applications.

Research project to evaluate potential fruit and nut organic compound bio-accumulation near contaminated groundwater sites.

Control of ozone precursors using an enhanced oxidation - biofiltration technology .

Innovative biofilter designs for chlorinated compound and dioxin precursor air emission control.

Surrogates for dioxins furans monitoring from combustion emissions.